International Conference on Strongly Correlated Electron Systems, La Jolla, CA, August 16-19, 1993

9314702 Maple This award is for support of the "International Conference On Strongly Correlated Electron Systems," to be held in La Jolla, CA, on August 16-19, 1993. The funds will be used to provide travel stipends for young scientists. The conference, to be held at the University of California at San Diego, is jointly sponsored by the Los Alamos National Laboratory, the National High Magnetic Field Laboratory, and the Institute for Pure and Applied Physical Sciences. The conference addresses a major research area in modern condensed matter physics and materials science with topics ranging from mixed valence systems to heavy fermions and high temperature superconductivity. NSF funding is being provided jointly by the Condensed Matter Physics Program and the Materials Theory Program. %%% ***